Applications of Data Grouping for Effective Mobility

Applications of Data Grouping for Effective Mobility
Darrell D. E. Long

The problem of reducing a mobile computer's communication and power
requirements will be investigated. Specifically, this research will address
both issues through improved storage management. Based on successes with
automated data grouping and predictive power conservation, research will be
conducted into improved data hoarding and disk power management techniques.
Effective grouping of data will make it possible to improve the automation
of mobile file hoarding, and decrease the effects of network latency and
disconnections on the mobile user. Similarly, through the grouping and
retrieval of related on-disk data, it is possible to improve disk power
management beyond the theoretical limits of any previously attempted scheme.
This will be done by actively modifying the access sequence to minimize
power requirements. Through transformation of data access workloads, this
novel approach reshapes disk idle times to effectively increase the amount
of time a disk can be spun down. Improving the battery life of mobile
computing devices is critical to their usefulness, and such power efficiency
is clearly an environmentally responsible goal. This research will establish
the effectiveness of on-line data grouping techniques to increase the amount
of data accessed per operation, while simultaneously reducing the total
number of disk operations.